2006 Second International Conference on Telephone Survey Methodology

The goal of the 2006 Second International Conference on Telephone Survey Methodology will be to bring together survey researchers and practitioners concerned with telephone survey methodology and practice in order to stimulate research papers that (1) contribute to the science of measuring and/or reducing errors attributable to poor telephone survey design, (2) provide documentation of current practices, and (3) stimulate new ideas for further research and development. A monograph that presents state-of-the-art research and practices related to telephone survey methodology will be prepared based on papers presented at the conference. The overall scope of the conference includes a day of short courses followed by a four-day program of technical sessions of research on telephone survey methodology that will cover sampling and estimation, data collection, operations, and nonresponse.